A Program for Manufacturing Management in Support of the Technology Re-Investment Project

9413041 Anandalingam ABSTRACT A Program for Manufacturing Management in Support of the TRP The University of Pennsylvania will extend its existing Executive Master of Science in Engineering program to meet the specific retraining needs of defense industry managers. TRP funds will help create partial fellowships for defense sector technology managers and new courses on applying modern business practices to manufacturing. This program will be offered through weekend classes. A number of firms and organizations have expressed strong support for the program, including General Motors, Air Products and Chemicals, Martin Marietta, Andersen Consulting, DOE/Sandia National Laboratory, the Naval Air Warfare Center, The West Company, and Chrysler. Industry participation will include an advisory board, helping with curriculum development, and tuition support for industry managers. ***